The Liquidity Demand for Money: Theory and Evidence

9422765 Beck The purpose of this research is to develop a theoretical and empirical foundation for the liquidity demand for money. This research extends the investigator's previous work on the theory of the value of money. In that work money was modelled as a call option on capital gains opportunities in securities. Two stages of research are planned. The first is to incorporate the liquidity value of money in a simple intertemporal general equilibrium model to derive the liquidity demand for money function. This macroeconomic model will be used as the basis for extensions to more realistic applications in future research. The second stage is to estimate the money demand function implied by the theory. Since the function changes over the range of interest rates, regime-switching time series techniques will be investigated. Evidence will be obtained on the validity of this theory of liquidity demand. The results of this study will determine the feasibility of modelling the liquidity demand for money based on this theory; they will also serve as a foundation for future research on other applications of the option value approach to pricing liquidity. ***